Experimental Particle Physics

9972170
Reucroft
The research described in this proposal is carried out at major facilities in the U.S. (FNAL where the D0 collider experiment is being upgraded) and CERN (where the L3 experiment is taking data at very high energies). The high energies of the colliding quarks and leptons in these experiments allow for the production of particles predicted by the Standard Model, which is incomplete but describes the overall experimental situation without error. The group is also involved in the construction of the CMS detector at CERN, which will extend the energy frontier well beyond current levels.